Collaborative Research: Low Power CMOS Circuits and Systems for Next Generation Wireless Information Technology

Foltz

There is a rapidly growing trend toward embedding wireless capability into a
wide variety of information technology products; recently in the form of
single chip transceivers, and in the future perhaps integrated on-chip with
the main product function. These devices must have low power consumption to
satisfy battery conservation and thermal considerations. Good receiver
sensitivity and signal handling are also essential in a crowded radio
frequency (RF) spectrum; however, this requirement conflicts with low power
circuit design. The PI proposes to develop low power CMOS circuits that improve
the trade-off between power consumption and RF performance.

Current CMOS low noise amplifiers (LNA) have noise figures as low as 0.8 dB,
input intercept points up to +18dBm, and power as low as 1.5 mW; however,
these specifications cannot be obtained simultaneously. Likewise, CMOS
mixers can meet demanding CDMA communications standards for linearity and
noise figure, but only at high power cost.

To address these problems the PI proposes a number of strategies for (a) reducing
power consumption for a given level of performance, and (b) allowing a
dynamic trade-off of power versus RF performance. These strategies include:
(1) reuse of amplifier stages at two different frequencies through reflex
arrangements, thus reducing the number of high performance, high current
stages required in receivers, (2) dynamically controlled positive feedback
and bias in LNA stages, to allow power, signal handling, and noise figure to
be traded off based on signal strength and interference, and (3) integration
of charge pumps into individual drain supplies, to optimize the voltage for
RF-critical stages while allowing the non-critical portions of a CMOS chip
to operate at low voltage.

Successful implementation will lead to improved range and life for wireless
sensors, more reliable communications under adverse interference conditions,
and ultimately to wider application of information technology in industry
and science.